Quinoproteins: Characterization and Mechanism

The aims of this proposal are to employ biochemical and biophysical methods to further characterize a class of cofactor-containing enzymes called quinoproteins. The research will focus on the mammalian quinoproteins, plasma monoamine oxidase, kidney diamine oxidase and lysyl oxidase. All of these enzymes had been thought to contain the bacterial cofactor, pyrroloquinoline quinone, PQQ, but this conclusion is now in doubt. The objectives of this proposal are 1) to characterize the active site cofactor-containing peptides of diamine oxidase and lysyl oxidase. It is possible that these enzymes have the same cofactor as plasma monoamine oxidase, i.e., 6-hydroxydopa; 2) to clone the genes and develop an expression system for plasma monoamine oxidase and kidney diamine oxidase; 3) to characterize the proximity of the Cu2+ and cofactor sites of all three enzymes using a variety of biophysical methods; and 4) to initiate an investigation of the biosynthetic origin of 6-hydroxydopa. These studies will provide a clear understanding of the mechanistic and structural features of these metalloquinoproteins and lead to a consensus concerning the nature of the carbonyl cofactor in quinoproteins of mammalian origin.